2001 Ahlfors-Bers Colloquium

Abstract

Award: DMS-0101539
Principal Investigator: William Abikoff

The Ahlfors-Bers Colloquium is to be held in October 2001 at the
University of Connecticut campus at Storrs. This award primarily
supports the participation of graduate students, junior
researchers, and speakers. Plenary lectures are planned to cover
a wide-ranging agenda in geometric function theory, hyperbolic
geometry, dynamics, and other topics and workshop days early in
the meeting are planned to showcase junior researchers.

The Ahlfors-Bers Colloquium is one of a series of conferences on
geometric function theory, Riemann surfaces and related topics
that have been held every three or four years since 1965. The
meetings' name honors Lars Ahlfors and Lipman Bers, two giants in
complex analysis who shaped the meeting's subjects over the
twentieth century. The current core of geometric function theory
consists mainly of Riemann surfaces (two-dimensional spaces
defined over the complex numbers, such as the collection of all
complex solutions to a typical single polynomial equation in two
variables), Teichmueller theory (an approach to studying the
variations of structure possible for a particular Riemann
surface), Kleinian groups (the most important discrete groups of
isometries of hyperbolic three-space), iteration of rational
functions (which combines dynamical systems ideas with function
theory), and hyperbolic manifolds. This core reaches back 150
years and meets or includes some of the most active specialties
in current mathematical research.
Abstract

Award: DMS-0101539
Principal Investigator: William Abikoff

The Ahlfors-Bers Colloquium is to be held in October 2001 at the
University of Connecticut campus at Storrs. This award primarily
supports the participation of graduate students, junior
researchers, and speakers. Plenary lectures are planned to cover
a wide-ranging agenda in geometric function theory, hyperbolic
geometry, dynamics, and other topics and workshop days early in
the meeting are planned to showcase junior researchers.

The Ahlfors-Bers Colloquium is one of a series of conferences on
geometric function theory, Riemann surfaces and related topics
that have been held every three or four years since 1965. The
meetings' name honors Lars Ahlfors and Lipman Bers, two giants in
complex analysis who shaped the meeting's subjects over the
twentieth century. The current core of geometric function theory
consists mainly of Riemann surfaces (two-dimensional spaces
defined over the complex numbers, such as the collection of all
complex solutions to a typical single polynomial equation in two
variables), Teichmueller theory (an approach to studying the
variations of structure possible for a particular Riemann
surface), Kleinian groups (the most important discrete groups of
isometries of hyperbolic three-space), iteration of rational
functions (which combines dynamical systems ideas with function
theory), and hyperbolic manifolds. This core reaches back 150
years and meets or includes some of the most active specialties
in current mathematical research.